High Reliability in Very Complex Organizations

There are a number of organizations whose missions involve great potential risk, but where perfect reliability is demanded because of the extraordinary consequences of failure. Examples of such high reliability organizations include nuclear aircraft carriers, air traffic control systems, and many public utilities. Relatively little is known about how these organizations operate, and how their operations differ from other types of organizations. The investigators will spend extensive periods of time observing and interviewing personnel on a nuclear carrier and a California electric utility. They will examine the central authority structure of the high reliability organizations, the way decisions are reached and the decision-making role of computer technology, and the development of a self-sacrificing organizational culture.